Gordon Research Conferences Summer of 1998

9804321 Storm The Gordon Research Conferences are held every summer to discuss recent findings and current thinking in various areas of science. Although participation is limited, the attendees usually consist of established scientists, young investigators who are making important contributions in these areas, and post doctoral fellows. They are usually held in small isolated New England towns away from other distractions and are conducive to the free exchange of ideas. Recently some conferences have also been held in Europe. These conferences have a recognized value for presenting the latest advances in research and also indicating the future trends in research which are likely to be most productive. ***